CONFERENCE: Integrative Conference on Forkhead/Winged Helix Proteins: to be held November 14-17, 1998, La Jolla, CA

An integrative conference on forkhead/winged helix proteins will be held at the Scripps Research Institute November 14-17, 1998. Winged helix/forkhead proteins from a family of transcriptional regulators that play key roles in development, cancer and in aging. Scientists from the US, Europe, and Japan, working on diverse aspects of forkhead/winged helix proteins will attend the converence to exchange information and initiate interdisciplinary collaborations. An important aspect of the meeting will be to include and encourage graduate students and young scientists to participate and join challenging investigations on the structure and transcriptional regulatory functions of forkhead/winged helix proteins and on the roles of these proteins in determining organ development, cell growth and aging.